Mathematical Sciences: New Models in the Rankin-Selberg Method and Uses of the Metaplectic Group

This award supports the research of Professor D. Bump to work in automorphic functions. He intends to work on extending the Rankin Selberg method and on new uses of the metaplectic group. These include the study of non-unique Whittaker models of theta functions on the n-fold cover of GL(2). Modular forms arose out of Non-Euclidean geometry in the middle of the nineteenth century. Both mathematicians and physicists have thus long realized that many objects of fundamental importance are non-Euclidean in their basic nature. This field is principally concerned with questions about the whole numbers, but in its use of geometry and analysis, it retains connection to its historical roots and thus to problems in areas as diverse as gauge theory in theoretical physics and coding theory in information theory.